Designing Computer Simulation Models to Study Developmental Biology

Computer-assisted three-dimensional modeling is being developed for analysis of complex biological events. A computer system capable of producing three dimensional simulations of various developmental processes that would be student interactive, has been designed. Once data are obtained and simulated, students can view the event from various perspectives, shade or color any class of tissue, follow specific highlighted areas during the developmental process, and make video movies of any of these. An advanced course is being developed in which a specific problem or system, for example the mechanics of amphibian gastrulation, eye development, patterns of homeobox containing gene expression during early Drosophila development and how they change in various mutants, neurulation, or heart formation, is studied in detail and simulated. The same equipment will be used to teach intermediate level courses in development or cell biology; this would allow students to interact with the simulations as a visual aid in understanding complex spatial relationships. Third, videos are being made to assist in teaching introductory level courses and these videos will be made available to other colleges. The college will contribute an amount equal to the award.